CAREER: Open-Loop Discrete-Event Control in Electric Power Systems

9983653
Rovnyak

The goal of this research is to develop and validate pattern
recognition methods such as Decision Trees (DTs) and Neural Networks (NNs)
for electric power system wide-area open-loop discrete-event control. The
proposed controls will provide Independent Service Operators (ISOs) and
present-day utilities with tools necessary to achieve the cost reduction
goals of deregulation without sacrificing reliability. The proposed
research will investigate the selection of contingencies to simulate for
the training data, algorithms for converting simulation data into input-
output pairs that make up the training sets, and measures of performance
used to evaluate the classifier operation. The PI and graduate students
will collaborate with researchers at Cornell University and the Bonneville
Power Administration and will test the proposed methods against other
schemes reported in the literature for out-of-step relaying, generator
tripping, active load modulation, HVDC fast power changes, and reactive
power switching. Students in EE 588, Advanced Topics in Power Systems,
will train and test NNs on data from the research. Undergraduate students
in EE 479, Automatic Control Systems Laboratory, will design feedback
controls for the simple power system model that is analyzed in this
proposal. The PI will engage all students in active learning through
frequent and extensive exercises that lead students through the discovery
process of problem solving instead of just rewarding the memorization of
techniques. The PI will distribute detailed, annotated solutions to all
homework problems on the due date. These teaching methods have been found
by the PI to be successful with a broad spectrum of students, including
women, minorities and people with disabilities.
***